Experimental and Theoretical Study of Ferroelectrics

A program of research on ferroelectric materials, especially thin film ferroelectrics, involving both experimental and theoretical investigations. Techniques include Raman scattering and Brillouin spectroscopy.